Postgraduate Studies in the Life Sciences

Twenty faculty members from two-year colleges in the Gulf Coast Consortium of Community Colleges will have an opportunity to update their knowledge and skills through participation in a four-week workshop. Areas of biology that will be emphasized are biochemistry, cell biology, microbiology, immunology, genetics, and physiology. These areas were identified as areas of great importance, through a needs assessment. They are areas which have been developing rapidly in recent years. After the four week course, follow-up seminars will occur during the school year at Baylor and the community colleges to establish continuing interactions and a formalized network between Baylor faculty and the two-year college faculty. The university has requested overhead at a reduced rate.